CAREER: Dynamical Systems on Homogeneous Spaces and Applications to Number Theory

Abstract
DMS 0238463

D Kleinbock(Brandeis): Career
The research component of the project deals with algebraic
dynamical systems and their applications to number theory.
A dynamical system here stands for an abstract set of points
together with an evolution law which governs the way points
move over time. It turns out that many problems concerning
simultaneous approximation of real numbers by rational numbers
can be cast in terms of the behavior of certain orbits, and
various phenomena related to the theory of integer equations
or inequalities can be better understood once they are phrased
in dynamical systems language. Furthermore, systems that
arise in this context are of algebraic nature, which makes
it possible to use a wide variety of sophisticated tools for
their investigation.

The educational component consists of several ingredients:
developing new `creative thinking' courses and supervising
summer research projects for both undergraduate and graduate
students, and maintaining an introductory-style interdisciplinary
seminar. The goals are to engage students in challenging research
projects, encourage non-standard independent thinking, and to
expose them to a broad spectrum of current mathematical research.